Analysis of Oxidative DNA Repair Enzymes in Damaged Rat Kidney (Biology)

This research includes a study of two enzymes, the redoxyendonuclease and formamidopyrimidine/8-oxyguanine-DNA glycosylase, which initiate the repair of oxidative base damages in the DNA. The levels of both enzymes will be quantified by biochemical assays in extracts of rat kidney tissue subjected to physiological oxidant stress as compared to the undamaged kidney tissue from the same animal as well as untreated controls. The results of these studies will lead to a better understanding of the induction of DNA repair activities in response to oxidative DNA damage and provide a basis for future studies on the fundamental mechanisms underlying free radical-mediated damage in animal tissues. Interactive activities include: teaching a revised graduate level pharmacology course with emphasis on molecular biology principles and techniques; organizing a panel discussion focusing on the differences in which men and women conduct science; and offering a recombinant DNA technology short course to undergraduate and graduate students as well as interested faculty.